Five problems in geometry

ABSTRACT DMS - 0204651. PI: David Auckly

This project is centered around a list of problems on the border of
topology, geometry and analysis. The least speculative problem is part
of a collaboration with V. Kapovitch to prove that there are compact
topological 4-manifolds that do not admit Alexandrov metrics. The result
should follow by a suitable modification of previous work of S. Donaldson
and D. Sullivan. The most speculative problem in the list is to study the
interaction between Gromov-Witten invariants and finite type invariants.

Many different ideas are used in geometric analysis, and developments
in this field will effect a broad range of other disciplines. For example
symplectic geometry and gauge theory were developed to describe mechanics
and electrodynamics. These ideas were developed into subtle invariants
of smooth manifolds defined via the solution to systems of partial differential equations.
Various gluing formulae developed to compute these invariants
resulted in relationships with other invariants that arise from a combinatorial
point of view. Properties of the combinatorial invariants lead to conjectures
about the smooth invariants, and vice versa. It is exactly this interplay
that makes geometric analysis such an important field.